Mathematical Sciences Computing Research Environments

The Institute for Computational Science and Informatics (ICSI) at George Mason University will purchase a network of RISC workstations which will be dedicated to the support of research in the mathematical sciences. The equipment is necessary to carry on computational mathematical research in several areas: theory of wavelets and computational harmonic analysis, including numerically stable inversion procedures for tomographic imaging and multisensor deconvolution problems; existence and stability of solitary waves in partial differential equations; control theory for certain partial differential and delay-differential equations; and attractor reconstruction for dynamical systems, involving methods which combine delay-coordinate embeddings and Fourier-based filtering for noise reduction and prediction in nonlinear processes.